MRI: Island Wake Effects in the Coastal Seas of Barbados, West Indies

In this project the PI's will complete the analysis and interpretation of hydrographic, current meter Acoustic Doppler Current Profiler, and satellite data acquired during a field experiment near Barbados. The immediate objective is to quantify the effects of island wakes on the coastal circulation around the island. Longer term objectives include the relationship between the circulation and larval reef fish dispersion, retention, and recruitment.